Mathematical Sciences: Mathematical Sciences Computing Research Environments

The Department of Mathematics at North Dakota State University, Fargo will purchase a workstaion, computer algebra software, and ancillary computing equipment which will be dedicated to the support of research in mathematical sciences. The equipment will be used for research on commuting varieties of Lie algebras.